Homological Mirror Symmetry for Calabi-Yau Hypersurfaces

Abstract

Award: DMS-1104779
Principal Investigator: Eric Zaslow

Mirror symmetry in string theory has, quite famously, linked
disparate fields of mathematics. The central theorem in the
subject is Kontsevich's homological mirror symmetry (HMS)
conjecture. The principal investigator proposes to prove this
conjecture using his recent work with collaborators. Connections
between mathematical physics and topology, representation theory,
and combinatorics have been revealed through the PI's research
with Nadler and with Fang, Liu and Treumann. What emerges is a
language for studying mirror symmetry and other advances in
mathematical physics from a simple, geometric viewpoint which
easily lends itself to computation. This perspective renders
some formidable hurdles of HMS rather tractable. The PI will,
with collaborators and graduate students, aim to prove HMS in
several stages. First, by defining a category, the Constructible
Plumbing Model (CPM), which models the Fukaya category of a
Calabi-Yau manifold at its large radius limit by defining a
formal Lagrangian skeleton and gluing together categories of
constructible sheaves made from pieces of the skeleton. Second,
by proving that CPM is equivalent to the category of perfect
complexes on the mirror Calabi-Yau at its large complex limit
point. After these steps, a deformation-of-categories argument
can be made to establish a mirror map and prove HMS.

The aim of string theory is to merge the two pillars of modern
physics: Einstein's theory of gravity and the quantum theory of
particles. Models of the universe from string theory rely on a
class of geometric spaces called Calabi-Yau manifolds.
Calculations in these models are quite formidable, but are often
made tractable through the phenomenon of mirror symmetry. The
idea of mirror symmetry is that one theory can look totally
different from another theory, but the two lead to the same
predictions. Hard calculations using one Calabi-Yau manifold can
become easy calculations in the completely different "mirror"
Calabi-Yau manifold. But to be truly useful, one must have
complete confidence in the equivalence, namely that the
calculations in the mirror theory can be trusted. This requires
a rigorous mathematical formulation of the model, a rigorous
statement of how to apply the equivalence, and a rigorous proof
that the equivalence is, in fact, true. The statements in mirror
symmetry have been made rigorous by Fields Medal laureate Maxim
Kontsevich. What is still lacking is a general proof of
Kontsevich's conjecture. The principal investigator proposes to
prove this conjecture in several steps, using a simple geometric
model which easily lends itself to calculations. The model can
also serve as a framework for exploring other predications and
phenomena of modern theoretical physics.